Organic Synthesis Using Transition Metals

The focus of this research is the development of C-C- bond making methodology using eta-3-allylmolybdenum complexes containing a chelating nucleophile and a heteroatom bound to the metal center. The complexes react with electrophiles, such as aldehydes, with a high degree of both regio and diastereoselectivity. With this renewal award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Marie E. Krafft of the Department of Chemistry at Florida State University. Professor Krafft will focus her work on the development of C-C bond forming methodology using the reactions of molybdenum complexes with electrophiles. The methodology has potential impact for the synthesis of natural products. Further, the research provides a valuable training ground for both graduate and undergraduate students.